Constraint Use In Language Comprehension

This research is designed to investigate syntactic ambiguity resolution in normal, adult language comprehension. The study of ambiguity resolution can illuminate the architecture of the language comprehension system and can evaluate the psycholinguistic and linguistic theories concerning the nature of linguistic mental representations. The theoretical framework of the investigation is a lexical, "constraint-based" framework in which syntactic ambiguity is seen as a type of lexical ambiguity, such that syntactic ambiguity resolution has the same properties as the resolution of lexical semantic ambiguities. This approach has been applied profitably to the analysis of several "classic" syntactic ambiguities in English that had previously been taken as evidence for a radically different processing architecture. The experiments use self-paced reading methods and eye fixation monitoring to study ambiguity resolution and constraint use. A large amount of normative data is also collected concerning the strength of the constraints, and regression methods are used to determine the extent to which difference constraints affect comprehenders' interpretations at different points in time. The research is significant in that it advances a unified account of language comprehension in which representation at all levels (phonological, lexical, syntactic, discourse, etc.) are governed by the same basic properties, including frequency sensitivity and activation of representations via constraint satisfaction. A unified account of language representation affects not only theories of human language use, but also work in artificial intelligence, which to date has generally reflected the more traditional theories of human language comprehension. Our understanding in the unified approach of human ambiguity resolution could therefore have substantial impact on computer natural language comprehension research, particularly the very difficult problem of ambiguity resolut ion in these systems.